Molecular Mechanics

Professor Norman Allinger is supported by a grant from the Theoretical and Computational Chemistry Program to continue in his development of the MM3 empirical molecular mechanics force field. This force field is parameterized on the basis of experimental data in the form of structures, vibrational frequencies, thermodynamic heats of formation, and when necessary supplemented with ab initio molecular orbital calculations. The MM3 force field is widely used to perform molecular simulations of organic compounds including macromolecular species. In this grant period, Professor Allinger will address a number of specific anomalies between current MM3 predictions and experimental observation which require special parameterization of the MM3 force field. These anomalies include: the anomeric effect, the Bohlmann effect, and the electronegativity effect on bond shorthening. %%% Molecular structure and thermodynamic properties including the relative energies of different conformations are frequently related to the overal physical properties of organic compounds. Chemists are constantly seeking links between molecular structure and physical properties which will assist them in directed synthesis of chemical species with desired physical properties and chemical activities. Computer models of molecular structure have recently become a very important tool in the quantitative prediction of structure and properties. Although the more sophisticated molecular orbital theory is the preferred technique for smaller molecules, empirical models such as MM3 are absolutely necessary for most larger molecules which are of interest to academic and industrial organic chemists. Allinger's MM3 force field is one of the most widely accepted empirical force fields which is used for this purpose.